Design Games as Means for Experimentation in Design Theory and Methodology

In creating a design, the designer attempts to arrive at the best solution given an objective and given a set of constraints that must be met. This process is very similar to playing a game since a game involves developing a winning strategy subject to the rules of the game. This analogy is apt since most designers find the process of design challenging and enjoyable and also feel the satisfaction of winning when they have created a good design. The principal investigator will create design problems that are structured as games. The design problems will be computer-based so that the designer's interactions with the rules can be monitored and studied. The use of a limited design space and the ability to change the rules (the design constraints) will create an environment in which the principal investigator can perform experiments in design theory and methodology.